Light Scattering and Spectroscopy in Dense Plasmas (Physics)

Experimental research on the basic physics of dense plasmas is to be carried out 1) by scattering of laser light and )2 by measuring shifts, widths, profiles and merging of spectral lines from multiply charged ions in laser-produced plasmas of measured density and temperature.